Tensor categories, dynamical R-matrices and double Hecke algebras

The current project proposes research on three subjects: 1) tensor categories
and Hopf algebras; 2) dynamical R-matrices and special functions, and
3) Cherednik algebras, Calogero-Moser systems. In the first area,
the PI plans to construct new examples of finite tensor categories,
both semisimple and nonsemisimple, and classify module categories
over given tensor categories. In the second area, the PI plans to
study elliptic hypergeometric functions of Felder and Varchenko
using representation theory of quantum affine algebras and
dynamical R-matrices, and to prove the De Concini conjecture about
quantum Weyl groups and the Felder-Varchenko conjectures
on the properties of elliptic hypergeometric functions. In the third area,
the PI plans to study finite dimensional representations of symplectic
reflection algebras, their large $N$ limits (double Yangians),
hyperbolic analogs (Gan-Ginzburg algebras), and ``topological
analogs'' (Hecke algebras of various braid groups). He plans to prove
algebraic PBW theorems for deformations of group algebras which
are similar to double affine Hecke algebras. He also plans to study
the connections of this subject with representations of quivers.

The current project is at the crossroads of several mathematical areas --
representation theory, mathematical physics, theory of integrable systems,
special functions. The theory of Cherednik algebras and Calogero-Moser spaces
originates from a remarkable family of orthogonal polynomials of several
variables called Macdonald polynomials. These polynomials are a very
broad generalization of the classical Legendre polynomials arising in
the study of the hydrogen atom, and they have an incredibly rich structure.
Similarly to this classical case, Macdonald polynomials are eigenstates
of a quantum Hamiltonian (Macdonald operator), which defines an
integrable quantum-mechanical system, in the sense that one can
exactly solve it. Representation theory allows us to use symmetry to
understand the structure of Macdonald polynomials. Similarly to how the
rotational symmetry of the hydrogen atom is instrumental in the study of its
quantum-mechanical properties, the structure of Macdonald polynomials
is uncovered using the quantum group and Cherednik algebra symmetry.
The theory of tensor categories, which is another subject of this proposal,
is also instrumental in understanding quantum systems, since the
representation-theoretical structure expressing the symmetry of many
such systems takes the shape of a tensor category.